U.S.-Italy Cooperative Research: Embedding Statistical Processes

This award will support a long-term visit by Professor Galen R. Shorack of the University of Washington to the Universita Degli Studi di Roma in Italy, to collaborate with Professors Gabriella Salinetti and Giorgio Koch of that institution. The researchers intend to investigate a broad class of statistical limit theorems that are of fundamental importance in the theory of empirical processes. There are at least two major approaches based on the so-called Skorokhod and Hungarian constructions. The PI has fundamentally simplified one of these approaches by showing that a properly formulated result yields classical necessary and sufficient condition types of statistical limit theorems. The proof depends only on standard second moment inequalities as opposed to the current delicate exponential bound techniques. Moreover, there is a natural mechanism by which the so-called weighted empirical process can be embedded. Additionally, newly discovered second moment techniques can be applied here also, to again yield a best possible rate of embedding result. This greatly expands the scope of application to statistical procedures. Thus, where reasonable conditions for limiting results are known, it will now be possible to determine both necessary and sufficient conditions. The Italian collaborators are also currently active in the field of empirical processes although they approach the subject from different but complementary directions. Thus the proposed interaction should be of mutual benefit and should help to advance the area of empirical processes. ***//